Workshop: "When and How Can You Specify a Probability Distribution When You Don't Know Much" II to be held at the University of Virginia, March 12-14, 1997

Workshop: When and How Can You Specify a Probability Distribution When You Don't Know Much - II This proposal seeks funds to conduct a second workshop on the selection and use of probability distributions by industry, government and regulatory agencies for the purpose of conducting risk assessments.Objectives are to further assess progress in selecting input distributions and characterize the state of the art in assessment techniques used by regulatory agencies.